Shapes for Modeling and Visualization

This two year award will support research in computational geometry and development of an associated software package in a novel area of three dimensional modelling called alpha-shapes. It is expected that this qualitatively new kind of volume visualization software will be useful to many disciplines. The research component of this grant will be carried out under the direction of Dr. Herbert Edelsbrunner, who developed the concept of alpha-shapes. The software development will be coordinated by Ping Fu of the National Center for Supercomputing Applications, an NSF supercomputer center with long and successful experience in workstation software development.